Toward an Understanding of Contextual Factors in Software Development

Proposal CCR-9988540
Henninger, Scott R.
University of Nebraska-Lincoln
Toward an Understanding of Contextual Factors in Software Development

With the rise of software architectures, frameworks, component-based
software engineering, design patterns, and other software development methodologies, it is becoming increasingly important to understand
the context in which different software development methods and
techniques are most effective. This research will seek to provide
a theoretical framework for understanding the contextual and
domain-based factors that mediate between success and failure for
different software development contexts. Particular emphasis will
be placed on tools and techniques that allow organizations to
systematically accumulate and improve knowledge of effective software
development practices within an organizational context. Methods
for empirical observation based on ethnomethodology and activity
theory will be developed to establish and validate a scientific
basis for understanding critical success and failure factors.
Results of this research will be used to 1) Develop methods for
scientific inquiry that will lead to engineering disciplines for
software development based on domain and context analysis, 2) Better
understand the knowledge-intensive nature of software development
activities and how past experiences can be used as the basis for
improvement, and 3) Development of methodologies that integrate
modern, component and framework-based techniques, with contextual
factors that match application problems to specific techniques with
the highest probability of success.